The Molecular Regulation of Male Gametophyte Development

The male gametophyte, the haploid male plant in the life cycle of flowering plants, plays an essential role by producing two sperm cells and transporting them through the female tissues of the flower into the embryo sac where double fertilization occurs. The results from the previous NSF funded research have raised several new and important questions with respect to the regulation of male gametophyte development that form the basis of the present proposal. Promoters of pollen-specific genes will be used to target in transgenic Arabidopsis plants the expression of several specific genes to specific periods in pollen development. The aim is to over- and/or under-express the gene products in order to perturb development thus providing clues to their function. The genes selected are considered to have important roles in pollen development although the details of the processes controlled by them are not known. Both repression of mRNA translation and mRNA stability appear to be part of the spectrum of regulatory mechanisms operating in pollen development. The cis-sequences in pollen mRNAs required for these properties will be identified. An unusual repetitive sequence that is found in the 3' non-translated end of several mRNAs present primarily in young microspores will be investigated further. In order to identify genes that play crucial regulatory roles in pollen development a search for T-DNA tagged pollen defective mutants is being started. This work will significantly expand our knowledge about the mechanisms regulating development of the male gametophyte.